Theoretical Nuclear Physics

9412818 Koonin This proposal will support a three year program of research in theoretical nuclear physics at the W. K. Kellogg Radiation Laboratory of the California Institute of Technology for the period of August 1, 1994 to July 31, 1996. The research proposed involves new continuing work on the description of nuclei and other quantum many-body systems. The training of graduate and undergraduate students and post-doctoral fellows is an integral part of the proposed research. ***